Selective Detection and Quantitation in GC/CIMS

This proposal is in the general area of Analytical and Surface Chemistry and in the subfield of chemistry studied by mass spectrometry. The focus of the proposed research is to study the mechanisms of Chemical Ionization (CI) reactions through detection of the neutral products of the ion/molecule reactions using the variation of ratios of sample ions in CI mass spectra as functions of electron current and source pressure. Such studies should prove useful for examining structural features for certain classes of compounds. Sample ion/sample molecule reactions will also be studied.In addition, the proton affinities of complex molecules will be determined since they are difficult to determine by other techniques, are not readily available, and should prove useful in choosing selective CI reagents for quantitative analyses. Comparisons will be made between experimental and calculated relative sensitivities of complex molecules in CI mass spectrometry. This research will investigate chemical methods of generating ions for improved analysis using mass spectrometry. The fundamental chemistry involved in generating such ions will be examined in detail. These studies may provide reaction prediction capabilities for certain classes of compounds. The propensity of complex molecules to associate with the hydrogen ion will be examined. The results of these experiments will be compared to theory.